TCP Enhancements to Support High Performance Applications

This is a two year accomplishment based renewal of award ANI-9415552 to improve TCP to operate at the much higher speeds than those for which it was originally designed. The research continues to focus on congestion behavior including TCP transient dynamics, differentiated services, autotuning, TCP clocking and Internet measurement and diagnosis.